Excitations in Molecular Nanostructures

This project is aimed at experimental and theoretical-simulation studies of molecular and excitation transport, interactions, dynamics and chemical reaction in small, confined material systems. Understanding the kinetics of crystallation, phase transitions, solid state reactions, and exitonic transformations in nanostructures will be emphasized. The controlled formation of molecular wires or crystalline "dots" is relevant to the search for better optical memories and chips, nanolithography, and supersensitive molecular detectors.